SGER: A Human-Centered System for Virtual Part Disassembly and Replacement

9615689 Lumelsky This award funds exploration of a novel sensor-based approach to disassembly planning for complex assemblies. Knowledge of part and tool kinematics and available tools, and procedures for disassembling a complex assembly could aid the designer in producing a more maintainable system or structure. The planned approach operates with incomplete information, enabling a computationally efficient answer to the formal question of existence of a path for removal of a given part from a complex assembly. This exploratory effort should show the way to the formulation of the more general questions for design such as how the kinematic constraints as well as tool and system maintenance procedure availability can be accommodated in design and planning.Incorporation of such knowledge in the original design process could also facilitate human performance of disassembly operations in some cases.